RUI: The Anxiety Buffering Function of Self-esteem and Cultural World Views

A large body of research suggests that people have a strong need to maintain a positive self-image, and that self-esteem plays an important role in a diverse array of important human behaviors. Despite this agreement on the importance of self- esteeem, the question of why people need self-esteem has not been addressed. This research will attempt to answer three questions: (1) why do people need self-esteem?; (2) how is self-esteem related to other aspects of people's conceptions of reality?; and (3) how does the need for self-esteem affect social behavior. This research will explore to what extent self-esteem functions to buffer the anxiety that results from human awareness of their vulnerability and mortality. Because self-esteem is essentially a cultural creation, a great deal of social behavior is oriented toward acquiring validation of one's worldview and self-worth from others. If self-esteem and cultural worldviews serve an anxiety-buffering function, then: (a) increasing a person's self-esteem or faith in worldview should make that person less prone to anxiety in a threatening situation, and (b) reminding people of a major source of anxiety should increase their need for validation of their self-worth and worldview. This research should increase our understanding of why self-esteem is so important and so beneficial for the individual.